Metrics-Based Evaluation and Science Based Validation of Space Physics Models at the Community Coordinated Modeling Center (CCMC)

The Community Coordinated Modeling Center (CCMC) is an interagency center devoted to space weather modeling and prediction. One of the goals of the CCMC is to determine which space weather models are appropriate for use in operational space weather forecasting. This project will examine the various metrics and scientific validation methods that should be applied to space weather models. The CCMC staff will perform direct data-model comparisons for space weather events. It will also provide an independent, unbiased forum for calculating the prediction or nowcasting metrics for different space weather models. In addition to the calculation of metrics and general scientific validation of models, the CCMC will explore the models performances under different space weather conditions to determine the limits under which the models can be used.